Mathematical Sciences: Singular Solutions of Elliptic Equations and Analysis on Non-Compact Manifolds

The research concerns singularities of solutions of partial differential equations on manifolds. Implicit in this work are heat-equation analysis and topology of singular spaces. From this one can study Hilbert/Fredhom complexes and related cohomology theories. This leads to certain generalizations of the classical Riemann-Roch theorem.